Parallel Domain Decomposition Methods and Multilevel Algorithms for Solution of PDEs (Postdoctoral Research Associateship in Computational Science and Engineering)

McBryan 9406582 The goal of the proposal research is to develop effective parallel sparse linear systems solvers for solving the algebraic equations arising in the finite element discretization of elliptic coupled systems of partial differential equations. These solvers will be based on domain and subspace decomposition methods for use in the solution of linear coupled multicomponent problems, such as the fluid-structure interaction problems. The emphasis will be scalable, transportable algorithms.